Centrifugation Equipment to Enhance Undergraduate Education in Molecular Biology.

The modern methods of Molecular Biology have transformed the knowledge and skills expected of Biology majors. Unfortunately, the illustrative experiments required for effective transmission of the knowledge and acquisition of the skills are equipment-intensive and expensive. The laboratory experiences of majors in Cellular and Molecular Biology are being modernized through the use of an ultracentrifuge and accessories purchased through thisd award. The ultracentrifuge is being used in laboratories in General Genetics, Molecular Genetics, Experimental Cell Biology, Immunology and Virology. Students are gaining hands-on experience with the instrument in a variety of laboratory situations including organelle and macromolecule isolation, plasmid isolation, and bacterial transformation by recombinant DNA methods. In addition, the instrument is being used to support independent studies by undergraduate students.